CAREER: Quantum Magnetism in Topological f-electron Metals

Non-technical Abstract: Understanding how quantum properties emerge in materials is a central challenge in modern physics and is essential for the development of next-generation information, communication, and sensing technologies. This project investigates quantum materials in which electronic behavior is strongly linked to magnetism and crystal structure, producing unusual states that are protected by fundamental physical principles. By revealing how these states form and evolve, the research advances knowledge that underpins future quantum technologies. The project also provides research training for graduate and undergraduate students through hands-on experiences in crystal growth, materials characterization, and large-scale experimental facilities. The principal investigator develops new laboratory experiments for the advanced undergraduate physics curriculum at the University of Kentucky, expanding student exposure to contemporary materials research and strengthening the scientific workforce in Kentucky.

Technical Abstract: The project addresses the scientific problem of how crystal structure, magnetic order, magnetic excitations, and topological electronic states interact in materials containing strongly correlated electrons. The research focuses on two complementary intermetallic materials systems, focusing on cerium-based compounds. In one case, the materials are candidate magnetic Weyl semimetals and show electronic topology that is closely coupled to magnetic order. In the other, magnetic ions sit on the Shastry-Sutherland lattice and show strong quantum magnetic fluctuations. These materials are predicted to host topological electronic states as well. The goals are to determine the magnetic structures and magnetic excitation spectra of these materials, establish how structural and magnetic phenomena influence their electronic states, and assess the role of quantum fluctuations in their behavior. The research team carries out a systematic experimental program that combines single-crystal growth, X-ray diffraction, measurements of magnetic, thermal, and electronic properties, and neutron scattering experiments at national user facilities. By comparing a candidate magnetic Weyl semimetals with materials that lie near a quantum spin liquid regime, the project develops a deeper understanding of the mechanisms linking topology, magnetism, and quantum fluctuations in quantum materials.